Travel: SODA 2024 Conference Student and Postdoc Travel Support

This award supports student and postdoctoral fellow attendance at the SIAM-ACM Symposium on Discrete Algorithms (SODA), to take place during January 7-10, 2024, again in Alexandria, Virginia. SODA is one of the few major conferences with broad coverage of Theory of Computing and Discrete Mathematics. SODA has a record of strongly encouraging participation by students, for whom the conference serves as a valuable educational experience, both for the technical content of the talks and for the opportunities for networking that it provides. This award will provide partial support to about 20 students/postdocs.